Collaborative Research: Compression of Geometry Datasets

DMS-0138458
Peter Schroder
DMS-0221642
Ronald A. Devore
DMS-0221669
Mathieu Desbrun

This is a collaborative project funded by the CARGO program under
DMS-0138458, DMS-0221642, and DMS-0221669. This is the Age of Information. Whether it be in scientific computation or reverse engineering, in remote sensing or medicine, data sets of
incredible resolution and exquisite detail are created
daily. These data sets often have geometric structure which
contains important information about the data and its
application. The usefulness of such geometric datasets
rests on our ability to process them efficiently, whether
it be for storage, transmission, visual display, correlation,
or registration against data from other modalities.
Compression is the common critical issue in all
these applications.

Current data processing technology does not provide the
efficient and geometrically faithful representations demanded
by applications. In fact, a satisfactory data processing
platform will not be created by incremental advances of current technology but rather through a fundamental investigation of
how to represent large data sets with inherent geometry. To
pursue the necessary advances a team of researchers and
application developers representing expertise from
several disciplines including mathematics, computer science,
and engineering has been assembled. As drivers of the research, specially targeted applications (DTED, reverse engineering,
physical simulation) have been selected to guide the formulation
of the most critical and meaningful problems, as well as testing approaches to solving them. The team is carrying out
fundamental investigations on the representation and compression
of data sets with geometry by building new mathematical theory
including deterministic models, appropriate application
specific error metrics (e.g., Haussdorf distance rather
than Lp norms), an information theory based on Kolmogorov
entropy to determine the optimal compression, and the
development of nonlinear methods for representing the data
sets which are near optimal in the entropy sense.